TQO MULTI - FACETED INVESTIGATIONS OF THE CONCRETE PIPE INDUSTRY

This research is designed to develop a broad information base on transformations to quality from a large sample of companies within one industry (concrete piping). It will identify practices or combinations of practices related to successful transformations, as well as identifying catalysts for, and barriers to successful transformation. The research also will provide benchmark information against which future transformations to quality can be assessed, and it will identify and isolate the steps necessary to achieve effective transformation. Data will be obtained through a multi-faceted survey of 238 member facilities of theAmerican Concrete Pipe Association, through surveys of over 2,000 customers of these concrete pipe makers, and through intensive investigations of approximately five of the facilities. Information will be obtained about the specific quality initiatives in use, the contextual factors surrounding the use of these initiatives, the factors that promote or impede the success of the quality initiatives, and about perceived and objective performance and quality outcomes. The interdisciplinary research team includes both behavioral scientists and engineers. The primary industry organization participating in this study is the American Concrete Pipe Association.